Industry/University Cooperative Research Center for Pharmaceutical Processing

EEC-9511912 Nail Pharmaceutical costs, along with medical costs, are rising sharply. Research can help contain some of these rising costs in the manufacturing area. An NSF planning award, EEC-9421600, provided funding to Purdue University's School of Pharmacy and Pharmacal Sciences to hold a meeting with pharmaceutical companies to determine their interest in forming an Industry/University Cooperative Research Center in Pharmaceutical Processing. The Department of Industrial and Physical Pharmacy at Purdue University proposes to establish a Industry/University Cooperative Research Center for Pharmaceutical Processing. The purpose of the Center will be to explore and develop new technology for pharmaceutical processing, to foster collaborative research project between industrial and academic scientists, and to promote an interdisciplinary approach to training students in pharmaceutical process research and development. The Center's initial research agenda will address: 1) Supercritical Fluid Technology for Particle Size Reduction; 2) Photon Migratimn Measurement for Process Monitoring; 3) Sterilization of Emulsions; 4) Effect of Milling on Particle Morphology; 5) Freeze Drying; 6) Effect of Particle Shape Characteristics on Blending Dynamics; 7) Effect of Initial Particle Morphology on Granule Strength and Shape Following West Granulation; and 8) Nucleation and Crystal Growth During Drying.